NSF/Berkeley Institute Management Conference - 1993

The University of California-Berkeley will convene a three day conference which will bring together thirty five Principal Investigators of middle school science teacher enhancement projects and middle school teachers. Anticipated outcomes of the conference are: o establishment of an informational network between previous/existing teacher enhancement institutes and o preparation of guidelines on successful methods for operating an institute. The conference will be at Lawrence Hall of Science, February (5-7), 1993. The CO-PIs are Drs. William Rohwer and Penny Moore. Cost-sharing equals 25% of the NSF award.